Partnership for Arts, Science and Technology Learning (PASTeL)

The goal of this planning grant is to establish an innovative collaborative of arts and science institutions to enhance informal science learning in Boston. The project will create a partnership between Northeastern University, the Boston Museum of Fine Arts, Boston Symphony Orchestra and the Wang Center for the Performing Arts to enhance the delivery of informal science programming for families with children ages 5-12 using interactive programs and exhibits. The planning project will develop and prototype programs across science themes that relate to each partner's mission, while highlighting science concenpts and topics. Deliverables include a front-end evaluation, pilot programs and then preliminary design of web modules. A national advisory comittee will convene to assist with the planning process while careful study of each site will be undertaken to determine how to maximize learning opportunities for participants in the diverse learning venues.